Track1, GK-12: Revitalizing Achievement by using Instrumentation in Science Education (RAISE)

This GK-12 project develops a partnership between Polytechnic University and 3 New York City high schools to enhance student achievement in the Regents Exam of Living Environment, Physics, and Math--A.

The intellectual merit of the proposal includes, raising academic achievement of students in STEM disciplines; stimulating students' interest in science and math by integrating "high-tech" sensing and data collection technologies in high school STEM curriculum, instruction, and laboratory; giving professional development opportunities to teachers; and encouraging cross-pollination of education research and technical concepts among the university and school faculty.

The Broader Impacts of the proposal include reinforcing STEM training and educational experience of a socially diverse and economically disadvantaged inner-city student body; building the laboratory infrastructure for sensor-based STEM curriculum and instruction; and broadening the ties of Polytechnic's Packard Center with local school districts and local businesses to sustain and grow its outreach activities.

This proposal is receiving partial support from the Directorate for Engineering

Title: Track 1, GK-12: Revitalizing Achievement by using Instrumentation in Science and Engineering (RAISE)
Institution: Polytechnic University
PI/Co-PI: Vikram Kapila, Magued Iskander, and Noel Kriftcher
Partner School Districts: George Westinghouse, Paul Robeson, and Seward Park
Number of Fellows per Year: 6 graduate students, 6 undergraduate "RAISE Fellows"
Target Audience: Grades 9-12 (High School), 900 students per year
Setting: Urban
NSF Supported Disciplines: Science, math, and technology